Fundamental Processes in Plasmas

9421318 O'Neil The research focuses on the physics of single-species plasmas- pure electron and pure ion plasmas. It includes both experiment and theory and places a great deal of emphasis on characterizing the fundamental properties of these systems. The plasmas are magnetically trapped in simple geometrical configurations where by a combination of theory and experiment it is possible to extract information crucial to a physical understanding of the plasma state of matter. ***